Mathematical Sciences: REU Site for Experiences in Applied Statistics

This proposal provides a research experience for ten undergraduates for an eight week program during the summer. The subject matter for this program is applied statistics. The students will participate directly in various projects in the community. They will participate in gathering, entering, preparing and analyzing the data. There will be extensive use of the computer. In other words the student will get the full benefit of being in the role of a practicing consulting field statistician. There also will be a background set of lectures presented to the students. The following is a list of the projects the students may be participating in: Parasite counts in grazing animals. Inventory sampling procedure. Pheromone study in shuckworms. Physical fitness study. Single cell protein additives. The student should benefit greatly from this "hands on" experience. This proposal is being funded througn the Research Experiences for Undergraduate program (REU) and represents a good example of the goals of the program.